Optoelectronic Parallel Processing with Logic Gate Arrays Based on Surface Emitting Lasers

9408371 Wilmsen The major objectives of this research are to: a) Demonstrate that VCSEL-based smart pixel arrays can be used in high performance parallel optoelectronic processing systems. b) Isolate the barrier technologies to the development of a practical parallel processing system. c) Develop the design/fabrication methodology for these VCSEL-based systems. d) Demonstrate the potential of optical computing for database processing. e) Investigate the interface between optical parallel memories and optical processing arrays. ***